Research Experiences for Undergraduates in Chemistry at the University of Colorado at Boulder

This project, funded by the Chemistry Division, supports Dr. Kathy Rowlen and other members of the Chemistry Department at the University of Colorado in establishing and conducting a new Research Experiences for Undergraduates (REU) site in chemistry. For the period 2000-2002, 36 undergraduate students will spend ten weeks each conducting summer research under the supervision of Chemistry faculty. The theme of the project is interfacial chemistry examples of which include atmospheric aerosols and self assembly of molecules on solid surfaces. Participating students will interact with faculty, post-doctoral associates, graduate students and other undergraduates in weekly meetings in which research progress is discussed as well as in the laboratory.